Cambria County Connections to the Internet - CATV - Ferndale School District

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years for an Internet connection for a high school and middle school through a cable television network.